Advancing U. S. Participation in International Scientific Organizations

0614728
White

This award supports the Board on International Scientific Organizations (BISO) of the National Research Council (NRC) of the National Academies of Science (NAS), which functions as the U.S. National Committee to the International Council for Science (ICSU), and serves as the focal point for ICSU-related activities in the United States. It manages U.S. membership in ICSU and has oversight of many of the national committees that serve as liaisons to unions, committees and programs federated under the ICSU umbrella. BISO's primary goal is to support effective U.S. participation and strong leadership in the ICSU network in response to growing needs in international science and technology.

ICSU which was founded 75 years ago, initiates, designs, and coordinates major international interdisciplinary research programs and works on matters of common concern to all scientists, such as science education and capacity building, data access and exchange, science and technology in developing countries, ethics, and freedom in the conduct of science. ICSU facilitates the exchange of scientific information, forges international agreements on standards and measurements, acts as a scientific adviser to intergovernmental agencies, and promotes the right of all scientists to participate in their activities without political or any other form of discrimination. ICSU has 102 adhering nations.

This 5 years continuing award will enable the NAS/NRC (the U.S. adhering organization to ICSU) to continue to manage U.S. participation in ICSU. The award provides dues payments to ICSU, and costs associated with the support and management of the U.S. National Committee to ICSU and organizational activities of adhering U.S. committees representing the diverse disciplines that participate in ICSU activities.